Immunological Studies on Glia Maturation Factor

Glia maturation factor (GMF) is a brain protein first detected in Dr. Lim's laboratory in 1972. The factor stimulates the proliferation and subsequent differentiation of astrocytes and Schwann cells. Endogenous GMF is also found in these cells, suggesting an autoregulatory function. Dr. Lim has recently achieved the milestone of purifying, sequencing, and cloning of the GMF protein along with the production of the recombinant growth factor which matches the natural protein in all respects. The chemically defined factor is now designated GMF-beta, in distinction from the cruder samples previously used. The pure protein promotes the maturation of neurons as well as glia, and arrests the growth of tumor cells of neuronal and glial origin. This research is a continuation of Dr. Lim's on-going effort to employ immunology as a tool to elucidate the mechanism of action of GMF-beta in the nervous system. Dr. Lim plans to do the following experiments: (1) to develop an anti-idiotypic antibody against GMF-receptors; (2) to demonstrate cell surface GMF-beta with antibodies in order to prove the hypothesis that GMF exerts its action through intercellular contact.